The Family and Community Context of Adolescent Development

ABSTRACT This research will increase our understanding of longitudinal change in adaptive and maladaptive development of adolescents and the relation of this change to family behavior patterns. The relation between adolescent functioning and family behaviors will be examined with a two-phase sampling design. The first phase is an epidemiological survey of the relation between family processes and adolescent functioning in a community population of adolescents from nine working-class, rural towns in New England. The second phase selects for intensive study a subsample of 100 families of adolescents chosen for their representativeness of the larger community population. The adolescents in the larger community sample and the families from the subsample will be studied at two times points two years apart in order to examine longitudinal change. The epidemiological survey phase tests hypotheses about the relation of family factors to adolescent outcome in a large, well-defined population. The intensive study of the representative subsample delineates specific family behavior patterns that are associated with varying longitudinal trajectories of adolescent adaptation. This intensive second phase uses methods of direct observation of family behavior patterns as well as standardized questionnaires and tests to assess all family members' functioning. This research will increase our understanding of the relationship between adolescent functioning and family behaviors.